RAPID: Collaborative Research: Studies of recovery from bleaching in Acropora hyacinthus: epigenetic shifts, impacts on reproductive biology and carry-over effects

Coral reefs provide strong economic and ecological benefits, yet they are declining worldwide largely due to extreme heat events that cause bleaching, a disturbance of the essential relationship between the algae that live inside the coral and the coral. There is currently a mass coral bleaching event in Moorea, French Polynesia where up to 90% of corals show some level of bleaching in response to heat stress. This location is ideal to study adaptation and acclimation thanks to the facilities and sampling of the Moorea Coral Reef (MCR) Long Term Ecological Research (LTER) site. This project explores how strong natural disaster events shape genetic differences in populations through time. By using historical environmental data it may be possible to identify modifications of the genome linked to past bleaching events. This knowledge will help establish models to predict reef recovery after disturbance and will be useful for choosing colonies with the best chance of survival in restoration efforts. This project also investigates how the bleaching history of the parents impacts characteristics of the next generations, such as reproductive output, larval, survival and heat tolerance. This project will provide training and involvement in research for three senior PhD students and at least five undergraduates. Coral restoration efforts rely on understanding how corals might adapt to environmental stress.

The mass coral bleaching event currently occurring in French Polynesia (April 2019) offers an opportunity to test hypotheses regarding mechanisms of rapid response to large scale disturbances. This project investigates potential epigenetic and genetic mechanisms involved in either resisting stress or recovering from bleaching. The research leverages the Moorea Coral Reef (MCR) LTER, which integrates the high resolution oceanographic metrics and data on long-term community dynamics into the study of rapid adaptation of Acropora hyacinthus. Genetic and epigenetic signatures of a natural selection event (bleaching) are tracked in the field to test the impact of bleaching history on reproductive and carry-over effects in larval and juvenile corals. Both physiological and molecular methods, such as 2bRAD genotyping and reduced representation bisulfite sequencing, are employed to investigate correlations between phenotypes and genetic and epigenetic differences in the genome. This work explores associations between selection on genetic variation and epigenetic variation as well as the potential role of DNA methylation in phenotypic change across a generation in association with coral bleaching. In this era of global change, there is mounting evidence that rapid evolutionary processes are occurring at time scales relevant to ecological processes. Therefore, capitalizing on a system with rich long-term ecological data, such as that associated with the MCR LTER, is ideal to investigate mechanisms of rapid adaptation.